Workstation Telephony Reducing PBX Expense

This award is to Cornell University and the IBM Research Division to develop workstation telephony. The project will create methods for carrying telephony over an integrated services network. In addition, a key result from this project will be the ability to interconnect that network transparently with existing PBX-based system and the world telephony network. In this effort, Cornell will build on its success in creating technology for low-cost pervasive QoS-capable networks (Cells in Frames), and on its success in creating a useable and widely deployed communications application (CU-SeeMe).